Workshop on Neuroendocrine Strategies in a Tropical Environment; San Antonio, Texas, December 1990

This award will support a workshop on neuroendocrine strategies in a tropical environment in conjunction with the 101st Annual Meeting of the American Society of Zoologists in San Antonio, Texas. The workshop, organized by Professors Barney Schlinger and Arthur Arnold of UCLA, will focus on tropical ecology and its relevance to neuroendocrine mechanisms in animal physiology and behavioral ecology. The meeting will highlight ongoing research in comparative neuroendocrinology within Latin America as well as studies utilizing neotropical animals. The tropical regions of the New World are considered by many to contain the greatest biological diversity of any region on the planet. This region is currently experiencing intense pressure from rapid development, including massive deforesta- tion and destructive land-use practices, actions that will detrimentally affect animal populations. This Science in Developing Countries award will help to promote collaboration and exchange of ideas between North American and Latin American comparative neurobiologists and endocrinologists in a topic of strong mutual interest.